Study of Conformal Contact Failure Mechanisms and Development of Related Failure Maps

9403362 Wang A research planning grant will support evaluation of the feaqibility of developing failure maps for tribological surfaces in conformal contact, including development of a model that takes microstructural parameters, as well as flash temperature, operating conditions, and general bulk properties into account. ***